LOW-DIMENSIONAL MANIFOLDS AND HIGH-DIMENSIONAL CATEGORIES

Abstract

Award: DMS-1041217
Principal Investigator: Ian Agol, Robion C. Kirby

This award will provide funding for a conference "Low-dimensional
manifolds and high-dimensional categories". The title is somewhat
ironic, in that the low and high dimensions are in fact the same:
3 and especially 4. The conference celebrates the occasion of
Michael Freedman's 60th birthday and some of the current
mathematical achievements and challenges influenced by Freedman's
work. For manifolds of dimension 5 and higher, there is a
well-established classification scheme, the so called surgery
theory which includes the celebrated s-cobordism theorem that
produces diffeomorphisms between manifolds from homotopy
theoretic data. Dimensions below 5 are more difficult because
there is less room to maneuver and, as a consequence, the
s-cobordism theorem fails. For n-categories, dimensions n
greater than 2 are difficult because of the complexity of the
combinatorial relations which describe the various ways n-balls
can be cut, glued and rotated. Thus dimensions 3 and 4 represent
a shared frontier of the two subjects, though this frontier is
approached from different directions. One of the main goals of
this conference is to promote cross-fertilization between experts
on 4-manifolds and experts on higher categories and quantum field
theories.

Michael Freedman made groundbreaking contributions to the study
and classification of 4-dimensional spaces (manifolds), which are
a central topic in the study of topology, and have connections
with algebra, geometry and physics. Ideas from physics, in
particular quantum field theory, imply that there ought to be
certain constructions which describe the topology of
4-dimensional spaces, that is, intrinsic properties which do not
depend on the measure of length or angles on the space.
Mathematically, these theories are formulated in the algebraic
language of category theory and require substantial new
developments in that area. The object of the conference is to
bring together experts on 3- and 4-dimensional manifolds together
with experts in category theory and quantum field theory to
explore the interactions between these topics. Additional
geometric structures, such as broken Lefschetz fibrations,
contact and symplectic structures, smooth structures, and gauge
theories will also be explored at the conference.